International Research Fellow Awards: Interacting Effects of Landscape and Behavior During Dispersal in Two Butterfly Metapopulations

9810298
Boughton
The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.
This award will support a twelve-month postdoctoral research visit by Dr. David A. Boughton to work with Dr. Ilkka Hanski at the University of Helsinki in Finland.
Dr. Boughton will study two species of butterflies, one population in California, near Sequoia National Park, the other in Finland, located in the Aland Islands. He will look at how behavioral preferences and landscape structure interact to produce patterns of dispersal. After testing predicted colonization dynamics against observed patterns, Dr. Boughton will develop a more general, practical model, using computer simulations to show the general parameters that govern this interaction.
Dr. Hanski has expertise in empirical testing and his group in Finland has built a unique dataset on metapopulation dynamics, which will allow the evaluation of Dr. Boughton's hypotheses about dispersal.
***